Expression of Drosophila Neurogenesis Genes in the Neural Crest of the Chick Embryo

This is a Research Planning Grant to enable Dr. Newport to initiate independent studies of the expression of Drosophila neurogenesis genes in the neural crest of the chick embryo. It is anticipated that this award will help Dr. Newport obtain the preliminary results necessary to launch an independent research career.